REU: University of Minnesota REU Site in Behavioral Sciences

This is a Research Experiences for Undergraduates projects. It will provide research experiences for ten students at the University of Minnesota. Students will participate in projects involving learning, perception and cognition.